RUI: Acquisition of Petrographic Instrumentation for Precambrian Paleobiological Research

9316699 Lanier This award provides 70% of the funds required to purchase a petrographic microscope system for the use of faculty and students in the Department of Earth Sciences at Emporia State University. The institution is committed to providing the remaining funds necessary to acquire the equipment. The award is made under the guidelines of the National Science Foundation's Research in Undergraduate Institutions program. The equipment is needed in research projects in sedimentology and micropaleontology and undergraduates will be actively involved in using the microscope equipment to contribute to research in these projects. ***